Preparing Mathematics Teachers to Teach for Justice and Joy in High-Needs Schools

This Noyce Track 1 project aims to serve the national need of preparing highly qualified mathematics teachers. Additionally, this project will support 31 mathematics scholars by providing tuition scholarships for their teacher licensure degree program and providing professional development seminars during their induction years to support teacher retention of scholars into the profession. The proposed project components will enable high-achieving prospective teachers to become secondary math teachers with extensive expertise in active learning instruction, creating authentic student engagement.

This project at Boston University includes partnerships with the Boston Public Schools, Malden Public Schools, and Waltham Public Schools. Project goals include the support and production of 31 new mathematics teachers through this grant over 5 years, the recruitment of STEM professionals and highly talented post-baccalaureate students who possess a degree in a STEM discipline, mostly mathematics, to teach secondary mathematics in high-need school districts, and the dissemination of research around how to better support beginning STEM post-baccalaureates entering the teaching profession. Additional goals include generating an exemplary model for recruiting, training and retaining a mathematics teacher community with a commitment to and facility with student centered, place-based and case-based instruction. Lastly, our goal is to disseminate findings of this project through publications and conference presentations to teacher educators and researchers who study how teachers learn to implement these student-centered practices.